Numerical Modeling of the Ice-tide Interaction in the ArcticOcean

The ice cover in the Arctic Ocean plays an important role in the global climate by controlling exchange of momentum and heat between the atmosphere and the ocean. Ice distribution defines not only the heat balance but it also influences the oceanic density distribution through the brine rejection during the cold season, and ice melting during the warm season. The strong processes of exchanging moisture and heat between atmosphere and water occur at the pack-ice openings. This project is part of a systematic study of the Arctic environment and its role in global change which is promoted by NSF's Arctic System Science Program. It is a two year project to utilize data sets existing in the Arctic and Antarctic Research Institute, St. Petersburg, Russia with existing and refined models of increased sensitivity to evaluate the effect of tides on ice production and ice-ocean interaction. This research will investigate four basic tidal constituents, with space resolution of about 20 kilometers, and the role of tides in sea-ice lead formation.